Conference on Electronic Structure and Magnetism in Complex Materials, July 26-28, 2000, Washington, DC

This grant provides travel assistance for young investigators to attend the conference ESCM2000: Electronic Structure and Magnetism in Complex Materials to be held at Georgetown University, July 26-28, 2000.
%%%